ACTIVITIES IN SUPPORT OF NSF NETWORKING

The science network user community of the National Air and Space Administration and the National Science Foundation largely overlap, so it is advantageous for the two networking organizatons to be closey coordinated in order to minimize duplication of facilities, reduce duplicate and wasteful efforts, and control overall costs for the agencies. This project will provide the means whereby NASA program management can effectively collaborate with and contribute to the networking program of NSF, especially in view of the leading role that NSF has taken regarding the National Research and Education network. Specifically, NASA would participate with NSF in the development and implementation of networking workshops, seminars and studies. This project also calls for NASA support of NSFNET reviews and hearings, for NASA participation in international network collaborations, and for NASA consultation on national network directions and management issues.***